Phase Transformations in Mantle Minerals

9304052 Liebermann Phase transformations in mantle minerals at high pressures and temperatures strongly influence the physical properties and dynamical processes in the Earth's interior. The PI will study the elasticity and microstructure of high-pressure phases using the techniques of ultrasonics and transmission electron microscopy. *** Program Director Date